Investigations in the Microscopic Theory of Nuclear Structure and Reactions

Projects are proposed in two areas of nuclear theory. The first area concerns the structure of nuclei above the threshold for emitting constituent nucleons. Development of nuclear models for this energy region provide a means of analyzing and correlating data from nucleon scattering experiments and experiments in which a nucleon is knocked out from a nucleus by a variety of probes, such a electrons and mesons. These investigations provide information on the structure of nuclei at high excitation and the distribution of nucleons within nuclei. The second area is hypernuclear physics. Hypernuclei contain at least one baryon with non-zero strangeness or charm. Although their lifetimes are very short, hypernuclei provide a laboratory for determining the interaction of exotic baryons with nucleons and with each other. They also provide the only practical means for studying a particular decay mode for the strange baryons. This decay mode, unlike the decay of a free strange baryon, is one in which no mesons are produced. Investigations are proposed for both determining the interactions of these exotic baryons and the mechanism for non-mesonic decay.